CAREER: The Secure Untrusted Data Repository (SUNDR)

All too often, decisions about whom to trust in computer systems are
driven by the needs of system management rather than data security.
In particular, data storage is often entrusted to people who have no
role in creating or using the data--through outsourcing of data
management, hiring of outside consultants to administer servers, or
even collocation servers in physically insecure machine rooms to gain
better network connectivity.

SUNDR is a network file system designed to run on untrusted servers.
SUNDR servers can safely be managed by people who have no permission
to read or write data stored in the file system. Thus, people can
base their trust decisions on who needs to use data and their
administrative decisions on how best to manage the data. Moreover,
with SUNDR, attackers will no longer be able to wreak havoc by
compromising servers and tampering with data. They will need to
compromise clients while legitimate users are logged on. Since
clients do not need to accept incoming network connections, they can
more easily be firewalled and protected from compromise than servers